Collaborative Research: Research on Strongly Coupled Plasmas

Correlation, thermodynamics, dielectric response and collective mode behavior in strongly coupled plasmas will be investigated using a variety of theoretical methods. Physical effects such as dipole-dipole interactions and wake flows are in the models and these are essential to describe existing experiments.